CISE Research Instrumentation: Scalable Storage Servers for Advanced Information Systems

9818320
Agrawal, Divyakant
Acharya, Anurag
University of California at Santa Barbara

Scalable Storage Servers for Advanced Information Systems

This research instrumentation enables research projects in:

- Architecture for Rapidly Growing Datasets,
- A Scalable Distributed Architecture for Locating Heterogeneous Information Sources,
- Data Placement and Information Access, and
- Clustering Support for Parallel Digital Library/Web Servers.

To support the aforementioned projects, this award contributes in building an instrumentation infrastructure for conducting experimental research on scalable storage servers at the University of California at Santa Barbara, Computer Science Department. The funds will contribute to the purchase of a cluster of quad-processor Workstations, several single processor PCs, a Fast Ethernet switch and a Fibervault with a large number of FiberChannel disks. This equipment will be dedicated to support research in databases, operating systems, and parallel computing. The equipment will be used for several interrelated research projects, including in particular: evaluation of architectures for rapidly growing datasets, design and implementation of a scalable distributed architecture for locating information, data placement for efficient content-based retrieval and design and implementation of cluster-based servers for digital libraries. Active Disk architectures which integrate significant processing power and memory into a disk drive will be investigated. Data placement and information access techniques on active disks will be explored. A scalable distributed architecture for locating heterogeneous information sources will be developed on the proposed instrumentation infrastructure. Finally, clustering support for parrallel digital library and parallel web servers will be developed. A common theme among the proposed research projects is to provide efficient and scalable support for advanced information systems.